Mathematical Sciences: Workshop on Mathematical Biology

9403380 Manoranjan This project will support the Workshop on Mathematical Biology to be held March 18-20, 1994 at Washington State University. The workshop will bring together theoretical and experimental scientists working in areas of biology, mathematics, and physics, thus creating an atmosphere for open communication and in-depth interactions. The major speakers will address topics in population models in ecology, bursting in neurons, chemical oscillations, and thermoregulation and flight. The workshop will be interdisciplinary and is expected to be a focal point for the meeting of theoretical and experimental scientists, especially from the Pacific Northwest region. There will be an emphasis on attracting recent doctoral recipients and graduate students to attend the workshop and in providing them opportunities for open communication with senior scientists on topics at the cutting edge of theoretical and mathematical biology. ***